Stereoselectivity in Electron Transfer

The study of stereoselectivity in electron transfer reactions between metal ion complexes in solution has significance, in that it may yield valuable information about the binding and the selectivity of proteins with various degrees of specificity. Potential utilization of the results of this research is in the such areas as design and manufacture of pharmaceuticals, in agricultural, and in food chemistry. Asymmetric induction in electron transfer processes is an important probe of mechanism, giving information on the interactions between reactant molecules. In previous work a variety of factors which influence the extent and nature of this stereoselectivity have been discovered. This work, will be extended, both in breadth and depth, by detailed kinetic and mechanistic studies designed to increase understanding of the fundamental processes involved in the chiral induction. A number of new areas are specifically targeted for study: outer-sphere reactions between similarily charged complexes where the interactions are weak, reactions involving metalloproteins where stereoselectivity ought to be substantial, and inner-sphere electron transfer reactions where stereoselectivity should be enhanced. In addition, investigations of stereoselectivity in redox reactions between metal ion complexes and nonmetallic substrates will be carried out. The results of these studies will be applied to the design of novel optically active metal ion complex oxidants and reductants which show enhanced stereoselectivity. Emphasis is placed on the synthesis of chiral ligand systems which bind stereospecifically to metal ions, preventing racemization even in labile oxidation states. The resolution of the problems involved requires a combination of reagent synthesis and the use of a variety of physical techniques; stopped-flow kinetics, circular dichroism, chromatography and N.M.R.